Robert Noyce Teacher Scholarship Program Track 1: Pathway to Mathematics II at The University of South Alabama

The Noyce Track 1 project aims to serve the national need of preparing highly effective mathematics teachers to support students in achieving their full mathematical potential. Currently, the lack of certified mathematics teachers contributes to poor achievement and low expectations. This problem is intensified in areas with overpopulated classrooms, individuals teaching outside the math certification field, and long-term substitute teachers lacking STEM backgrounds. The National Center for Education Statistics 2019 National Assessment of Educational Progress mathematics assessment, reported 57% of Alabama eighth graders scoring at the basic level, indicating only partial mastery of prerequisite skills needed to achieve proficiency. The Robert Noyce Pathway to Mathematics II (PTM 2) project intends to help schools fill gaps in student mathematical understanding while staffing schools with 20 high-quality mathematics teachers over a five-year period, continuing to mentor current teachers produced by the initial PTM project. A hallmark of the project will be its pre-residency experience, allowing prospective teachers to observe with mentor teachers prior to joining the PTM 2 project. Scholars will graduate with a master’s degree in mathematics education, including graduate coursework in both teaching pedagogy and mathematics content.

This project of the University of South Alabama College of Education and Professional Studies and the Colleges of Arts and Sciences and Engineering includes a partnership with the Mobile County Public School System. Goals include adding to the body of knowledge factors that attract STEM majors to careers as mathematics teachers, and engaging current STEM majors and professionals in a curriculum designed to provide a wide spectrum of teaching experiences beneficial to all students. A critical characteristic of intellectual merit for PTM 2 will be its capacity to produce mathematics teachers who stay in the profession while evaluating effects of an integrated STEM approach to teaching mathematics starting in the middle grades. It is projected that through coursework, a Summer STEM Institute, seminars, and workshops focused in mathematics and STEM relevant pedagogy, and through real life personal connections with middle and high school students, PTM 2 scholars will graduate with the tools and dispositions to meet the academic, social, and psychological needs of students they will serve. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) How does the retention rate for PTM 2 teachers vary from teachers trained via traditional approaches? and (b) How do students of PTM 2 teachers differ in achievement from students of other teachers? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.